The Symmetry of Densest Packings of Space

This proposal is in the spirit of Hilbert's Eighteenth problem, to
study the symmetries of the optimally dense packings, by spheres or
polyhedra, of Euclidean and hyperbolic spaces of general dimension.
Very few particular such packing problems have ever been solved, but
our goal is more directed to study such problems as a class, to
specify them so that they are well-posed, with reasonable conditions
for existence and uniqueness, and in particular to then study the
symmetries of the solutions. This work is motivated in part by the
discovery of aperiodic tilings, such as the Penrose tilings of the
plane by the kite and dart polygons, tilings which can be understood
as solutions of such a packing problem. The symmetries of aperiodic
tilings have long been connected with the mathematics of ergodic
theory, using either the translation group or the full congruence
group of the space being tiled as the dynamics. The symmetry of the
tilings has then been related to the conjugacy class of the associated
dynamical system. Several questions are proposed here about the
symmetry of packing problems, some directed at general qualitative
behavior and some directed at important special cases. For instance,
it is proposed to show that the symmetry of the densest packings of a
hyperbolic space by spheres of fixed radius is different for different
radii. (It is already known that for most radii the densest packings
are aperiodic - they cannot have crystallographic symmetry.) And more
generally it is proposed to show that a "generic" packing problem, in
Euclidean or hyperbolic space, only has optimal solutions which are
not crystallographic.

Anyone who has tried to squeeze as many pennies as possible onto a
tabletop has seen that the most efficient arangement is also very
symmetrical, with six pennies surrounding each. The similar problem
for efficient packings of spheres in space also leads to high
symmetry. But there is almost nothing known about precisely why, in
general, efficiency leads to symmetry, and what kinds of symmetry are
possible. Twenty years ago a new metallic alloy was discovered, a
physical solution to a closely related optimization problem, and the
alloy was found to possess a symmetry the nature of which is much less
obvious, or, put another way, in which the mathematics of the symmetry
is less well developed. This proposal concerns the study of the
symmetries of efficient arrangements in space of spheres and polyhedra
and in particular the development of a mathematical formalism in which
such symmetries can be usefully analyzed. Particular questions about
the nature of efficient packings of spheres are also specified.